Non-Commutative Algebraic Phenomena in the Topology of Three- and Four-dimensional Spaces

Abstract

Award: DMS-0104275
Principal Investigator: Tim Cochran

This project develops a new area of noncommutative algebraic
topology and its applications to low-dimensional topology. The
success of algebraic topology in knot theory, for example, has,
until recently centered around abelian invariants, that is to
say, invariants associated to the universal abelian covering
space of the knot or link exterior. These invariants are the
Alexander module, which is the first homology of this cover as a
module over a commutative Laurent polynomial ring, and the
Blanchfield pairing. These determine the S-equivalence class of
the knot as well as various other invariants. From the
perspective of the knot group G, the Alexander module is simply
G'/G". Hence any behavior associated to G" will be invisible to
these abelian invariants. We remedy this deficiency by studying
the quotients of successive terms of the higher derived series,
or, put another way, study modules associated to more general
solvable covering spaces. These are modules over noncommutative
rings and thus are difficult to work with. We use techniques from
noncommutative algebra and C* algebras to define invariants. We
find , for each integer n, an entire theory which parallels the
Alexander module and Blanchfield form and signatures. There are
applications to estimating genus, detecting fibered knots and
3-manifolds, new invariants of concordance and representations of
mapping class groups.

The advent of quantum mechanics led scientists to many
paradoxical, but now accepted, facts about our universe. In
particular, there came the realization that "commutative
mathematics" was inadequate to describe our physical
world. Recall that 2 times 3 equals 3 times 2 is the commutative
law of multiplication of numbers. Quantum mechanics showed that
physical quantities are not mere numbers but more like arrays or
matrices of numbers. Since multiplication of matrices is not
commutative, this explains and models noncommutative phenomena at
the most fundamental levels of the physical world. This project
studies the shape of 3 and 4-dimensional spaces by using new
noncommutative mathematics arising from algebra.